Mechanistic Studies of Glass Surface Cleaning

The goal of the proposed research is to develop a continuous non-invasive technique to evaluate the kinetics of film removal in the cleaning process. A study of the parameters influencing the removal of a film from a smooth surface (e.g., film thickness, viscosity and density) in conjunction with the solvent properties will provide insights into the mechanisms of contaminant removal. The results of this research will be used to test the validity of earlier kinetic cleaning studies. The extension of the proposed experimental methods to other cleaning geometries will aid in a fundamental understanding of the mechanisms of contaminant film removal from smooth surfaces. Total internal reflection fluorescent spectroscopy will be implemented to continuously monitor the removal of a contaminant film from the inner surface of a cleaning cell. Indirect measurement of rate of decontamination through continuously monitor the removal of a contaminant film from the inner surface of a cleaning cell. Indirect measurement of rate of decontamination through continuously monitor the removal of a contaminant film from the inner surface of a cleaning cell. Indirect measurement of rate of decontamination through continuously monitor the removal of a contaminant film from the inner surface of a cleaning cell. Indirect measurement of rate of decontamination through continuous measurement of contaminant species in the effluent from the cell during cleaning process and shear stress measurements will provide additional information about the kinetics of the cleaning process.